Geologic Mapping and Ground Truth Studies of the Reykjanes Ridge Spreading Center at 59 50'N

9315611 Crane Funds are provide for a completion of a study of two axial volcanic systems and a non transform en echelon offset of Reykjanes Ridge. This would lead to an understanding of how crustal thickness affects tectonic and magmatic evolution of the ridge. Existing SeaMARC and Hydrosweep as well as submersible data will be used.